Safety Evaluation of Existing Steel Bridges

Many highway bridges of steel girders are deteriorating because of environmental effects, corrosion of steel components, and other damanages due to oversized loads. To determine the safety and useful rating of the bridge, it is necessary to analyze the effect of all the adverse conditions combined with the inherent redundancy of the three-dimensional characteristics of the total bridge system. This project will investiage the safety of the bridge by applying the latest system reliability-based technology in conjunction with damage assessment concepts to determine the following: develop a better undrstanding of the effects of various damage conditions and redundances of the bridge; evaluate the safty of the total bridge system; and develop guidelines to establish classifications for different types of steel bridges.